A Reformed Calculus Program Based on Mathematics and ProjectCALC

Students are learning calculus in a discovery-based laboratory course using materials developed at Duke University and adapted for use in a liberal arts college setting. The course and laboratory materials are made available for Macintosh computers and exploit the Notebook feature of the computer algebra system Mathematica.